Workshop on Global Science and Technology Resources; June, 1992; Stresa, Italy

An international conference, Global Scientific and Technical Resources, was held in June, 1992, Stresa, Italy. A group of U.S. academic participants serve as rapporteurs for the Conference, and convene to prepare a special analysis of Conference materials and discussions for NSF. This report is intended to contribute to an informatiion and data base for planning NSF international activities. As one issue,the special analysis will consider how mulilateral organizations facilitate S&T cooperation among institutions of member countries and with non- member countries. Other international issues will be addressed concerning S&T relations between industrial and develping countries. The special analysis will serve as highly useful input to NSF and INT in planning international initiatives. *** //